Graduate Student Support for the 2013 Gene Golub SIAM Summer School in China

This award provides support for US-based Ph.D. student participation in the Gene Golub SIAM Summer School, which will coincide with the International Summer School on Numerical Linear Algebra (ISSNLA) on July 22 - August 2, 2013 at Fudan University in Shanghai, China. The conference encourages and financially supports participation by members of groups underrepresented in mathematics.

The meeting includes invited lectures on topics of current research interest in computatonal mathematics. The conference brings together workers in a variety of different areas of research in numerical linear algebra, with emphasis on preparing Ph.D. students for useful and engaging research careers. Allocation of the funds will be based on scientific merit, financial need, and diversity, with an emphasis on participation by members of underrepresented groups.

Conference web site: http://g2s3.cs.ucdavis.edu